The Protein Data Bank

9313205 Stampf This award provides funds for continued operation of the Protein Data Bank PDB at Brookhaven National Laboratory. The PDB database contains atomic coordinates for proteins, nucleic acids and macromolecular assemblies, such as viruses, whose 3 dimensional structures have been determined through x-ray crystallographic or nuclear magnetic resonance NMR techniques. The database currently contains in excess of 2000 entries, and is expected to double in size in the next 3 years. The PDB may be accessed directly through electronic mail; copies of the database are also available at a nominal charge from the PDB and from a number of secondary sources. This database is used by structural biologists in academic institutions, government and private research organizations, and industrial research laboratories. ***